Developing a Web-Based Interactive Database for Butterfly Population Dynamics and Weather Using 30 Years of Monitoring Data

The University of California at Davis has been awarded a grant to design and develop a web enabled database combining an extensive amount of butterfly occurrence data collected over 30 years with local environmental data for an area of northern California. Representations to XML and EML (Ecological Metadata Language) will be available from the Darwin Core based schema which will also be DiGIR enabled. This will make the data broadly useable and easily integrated across the internet with other data from various fields.